CAREER: Integrating Nanoconfined Interfaces and Aptamer Switches for Autonomous, Electrochemical Imaging of Chemical Analogs

This CAREER project is developing new chemical measurement tools that seek to help scientists detect and distinguish closely related small molecules in complex environments. Many important molecules in medicine, biology, environmental monitoring, and manufacturing differ only slightly in structure, making them difficult to measure selectively in real time. The project would create electrochemical sensor platforms that use nanoscale materials and molecular recognition switches to identify chemical analogs without relying on large laboratory instruments. If successful, the work could advance real-time chemical analysis for precision medicine, drug monitoring, environmental sensing, and biotechnology by enabling faster and more selective measurements directly in complex samples. The project would also integrate research with education and workforce development by training students in electrochemistry, nanoscience, biointerfaces, and data-enabled chemical measurement, while developing outreach activities that would broaden exposure to modern analytical chemistry and biotechnology.

At the technical level, this project would investigate how nanoconfined electrochemical interfaces regulate aptamer-switch behavior, electron-transfer efficiency, antifouling performance, and chemical analog discrimination. The research would combine nanoporous and nanostructured electrodes, engineered surface chemistries, electrochemical aptamer-based recognition, and autonomous data-analysis workflows to establish design rules for electrochemical imaging of structurally similar molecules. The project would test how nanoscale curvature, pore architecture, interfacial charge, and antifouling layers influence recognition and signal transduction in complex media. These studies would provide a mechanistic foundation for adaptive, selective, and scalable electrochemical sensing platforms that could be generalized across analyte classes and measurement environments.